Conference and Mittag-Leffler Institute Program on Geometry, Analysis and General Relativity

Abstract

Award: DMS-0807545
Principal Investigator: Gregory J. Galloway

The Mittag-Leffler Institute in Djursholm, Sweden is running a
semester long program on Geometry, Analysis, and General
Relativity from August to December, 2008. The program will start
off with a conference at the Royal Institute of Technology (KTH)
in Stockolm, August 25-29, 2008. This will be a comprehensive
program focusing on analysis and geometry problems revolving
around the Einstein equation, the the field equation of general
relativity. The purpose of this award is to help U.S. researchers
and students with travel expenses to Sweden, and with local
expenses pertaining to their participation in the KTH conference.
The Einstein equation is one of the most important geometric
partial differential equations, in both the Lorentzian and the
Riemannian settings. Spectacular progress has been made in
recent years in the study of the Einstein equation, wih progress
being made on many fronts. These developments have brought into
focus the deep connections between the Einstein equation and
other important geometric PDE's, including the wave map equation,
the Yang-Mills equation, the Yamabe equation and the Ricci flow
equation. The main aim of this Mittag-Leffler Institute program
is to bring together the leading contributors to these
developments to promote collaboration in the study of the global
structure of solutions to the Einstein equation and related
geometric PDE's.

Rapid progress on experimental and numerical aspects of
gravitational physics has been made in recent years, and it is of
increasing physical importance to understand effects such as
gravitational radiation, gravitational collapse and inflation,
where the strong field features of the Einstein equation play a
fundamental role. The results of the collaborative research and
analysis to be carried out during the program will have a
significant bearing on these fundamental physical problems.
Participation of graduate students and recent PhD's is a key
component of the program, and is crucial to the continuing
vitality of the area. Further details concerning this
Mittag-Leffler program and the kick-off conference at KTH may be
found at: http://www.mittag-leffler.se/programs/0809f/
http://www.math.kth.se/ag08/